Third U. S. National Conference on Earthquake Engineering

This award is for partial support of the Third U.S. National Conference on Earthquake Engineering which will be held in Charleston, South Carolina on August 24-27, 1987. The conference coincides with the 100th anniversary of the 1886 Charleston Earthquake. Scientific information and research results will be presented through a series of papers, special lectures, and poster sessions. The conference will also offer a major public awareness program including student activites and special publications.